Discrete Problems in Harmonic Analysis, Ergodic Theorems and Singularities

Proposal Number: DMS-0202021
PI: Akos Magyar

ABSTRACT

The proposed research will deal with several problems in
harmonic analysis some of which are also of interest in
ergodic and number theory. The emphasis is on a combination
of techniques from analysis and of other fields such as
analytic number theory and singularity theory. The objects
of study are related to diophantine equations, maximal
averages over subvarieties and their discrete analogues,
polynomial type ergodic theorems as well as oscillatory
integrals and integral operators with degeneracies. A set
of problems are discrete in nature, where mapping properties
of operators related to classical exponential sums play a
crucial role. Tough these appear as discrete analogues of
well known constructs in analysis, they in turn can yield
to new insights both in ergodic and number theory. Another
direction is to study problems related to oscillatory
integrals with degeneracies, where the usual "curvature"
type conditions are replaced by assumptions on the
singularities or only assuming genericity.

During roughly the past decade the scope of harmonic
analysis has been vastly extended by incorporating methods
from seemingly different fields of mathematics. This has
led to an essentially deeper understanding of basic partial
differential equations under periodic conditions (such as
the nonlinear Schrodinger equation of quantum mechanics and
the Wave equation), new phenomena in ergodic theory meaning
that measurements do not have to be taken regularly but
only very rarely to understand physical processes. The
proposed research will concentrate on these types of
problems Where a combination of methods of different fields
of mathematics seems to be needed.